Cognitive Aspects of Strategic Behavior

This research will examine the extent to which alternative cognitive processes might explain whether or not a particular Nash equilibrium (from among many) will be achieved in a particular game. The focus will be on both what information is used by subjects depending on their sophistication and on learning in games where it is explicitly recognized that subjects are likely to exhibit heterogeneous behavior.